Analysis of the Function of a Neuronal-associated FABP

9728662 DE LEON Axons are a functional and distinct extension of the cell bodies (soma) if nerve cells. Axons transport materials that are needed to carry on the daily cell-to-cell communications that occur distant from the soma. At times of rapid axon growth, such as during normal development and axon regeneration, the nerve cell's soma (where the nucleus is located) synthesizes high levels of key proteins and phospholipids. These newly synthesized materials are efficiently transported to the end of the axon where regenerative or developmental growth occurs. Presumably, some of these newly synthesize proteins are important for axon growth. This research will determine if a recently discovered neuronal fatty acid binding protein, named DA11FABP, is required for nerve cells to grow neurites successfully. Previous studies from the PI's laboratory have shown that DA11FABP exhibits a robust induction during both developmental and regenerative axonal growth. The first goal of the study will be to create a neuronal-like cell line expressing significantly reduced levels of DA11 protein and determine if these cell lines exhibit a deficit in producing neurites during cellular differentiation. The next goal of the study is to determine what is the biological ligand of DA11 in these cell lines. This part of the study includes the production of recombinant protein and conducting binding studies to determine the affinity of the ligand(s) for DA11. The last part of the study will determine whether the biological action of DA11 during cellular differentiation is directly linked to its binding of its ligand(s). The results obtained from this study would likely increase our understanding of the molecular and cellular mechanism of axon growth and nerve regeneration.